Applications of Semigroups to Algebraic Geometry Codes

The investigator studies applications of algebraic geometry to
coding theory. In this proposal, the investigator focuses on
problems relating semigroups and algebraic geometry codes. This
involves exploring connections between Weierstrass semigroups of
m-tuples of points on a curve and algebraic geometry codes formed
using these m points. The first aim of this project is to better
understand the structure of Weierstrass semigroups of m-tuples of
points on certain curves over finite fields. The second goal is
to apply this knowledge to improve bounds on the minimum distances
of codes constructed using these curves as well as arbitrary
curves over finite fields. This builds on the investigator's
previous work showing that Weierstrass semigroups of pairs of
points can be used to construct algebraic geometry codes with
parameters exceeding the usual lower bounds. These codes,
constructed using two points on a curve, have better parameters
than any comparable code constructed using a single point on the
same curve. Thus, in the third component of this project, the
investigator compares codes constructed using m points on a curve
to those constructed using fewer than m points. In addition to
these topics, this project includes a focus on semigroups used in
decoding algorithms for algebraic geometry codes.

Error-correcting codes are used to ensure reliable transfer of
information across noisy communication channels by detecting
and correcting errors. Such codes are found in a wide range of
devices, from computing equipment to cellular telephones to
compact disc players. For practical applications, codes should
be efficient and correct as many errors as possible. While there
are many ways to construct codes, one of the most promising uses
tools from algebraic geometry. In particular, curves over finite
fields are used to define error-correcting codes, called algebraic
geometry codes. One can gain information about these codes by
studying the curves used to define them. In this proposal, the
investigator examines curves commonly used to define algebraic
geometry codes by studying semigroups associated with the curves.
This knowledge is then applied to obtain better estimates of the
efficiency and error-correcting capabilities of the corresponding
codes. In addition, the investigator pursues applications of
semigroups to the process of decoding algebraic geometry codes.